Organization of a Neural Modulatory System (

This proposal is the U.S. side of a U.S.-Russia Cooperative proposal simultaneously submitted together with Dr. Pavel Balaban of the Institute of Higher Nervous Activity and Neurophysiology in Moscow. The proposal is directed at several questions about the organization of a serotonergic neuromodulatory system in the gastropod mollusc, Helix aspersa. These questions have recently become approachable with the advent of voltage-sensitive dye recording methods that can simultaneously monitor the action potential activity of several hundred neurons in these ganglia. In this first grant period we hope to answer the following: How uniform is the group of serotonergic neurons in their response to touch and to noxious stimuli? How much synaptic interconnection is there among these serotonergic cells? Is the response of these cells sensitive to the satiation state of the animal? Are there fundamental differences from animal-to-animal in the functioning of the modulatory neurons? How does the function of this group change during habitualtion and sensitization? The answers to these questions would provide specific information about neuromodulation in the Helix nervous system but will also be more general significance. These experiments will be the first attempt to obtain physiological data on the functional cohesiveness of a group of apparently similar neruons. Further, some of the results from Helix will test the generality of conclusions about consistency in nervous systems obtained from experiments on the Aplysia abdominal ganglion.***//